Arithmetic Cohomology

Geisser continues the study of arithmetic cohomology for varieties of
finite type over the integers, a cohomology theory which should
be finitely generated and an integral model of l-adic cohomology, .
For varieties over a finite field, Geisser previously constructed a good
candidate, and propose to continue proving basic properties,
such as Poincare-duality, and integral versions of various
theorem and conjectures, such as Kato's conjecture.
For varieties flat over the integers, Geisser proposes to examine if
Lichtenbaum's working definition has good properties.

Given a system of polynomial equations with integer coefficients,
it is an important question to determine if it has solutions, and
to count them if they exists. The number of solutions can be encoded in
a function called "zeta-function". Relating the zeta-funtion to invariants
of the sytem of equations called "cohomology groups" helps to gain
information on the number of solutions.
Geisser proposes to continue to study a new type of cohomology groups,
which has better properties than the cohomology groups used so far.